Presidential Young Investigator Award

The investigator's research is focused on the use of observations of Earth's magnetic field to develop and constrain theories of the origin and evolution of the magnetic field; on investigations of the structure and dynamics of Earth's deep interior; and on investigations of the magnetic fields of other planets.